IUCRC Planning University of Colorado Boulder: Center for Pervasive Personalized Intelligence (PPI)

Internet of Things (IoT) marks the dawn of a technological revolution that rivals the industrial revolution. In this new era, intelligent computing becomes anticipatory, proactive, and adaptive. The next big growth in IoT systems will come from pushing Pervasive Personalized Intelligence (PPI) to the edge of the network, where latency is critical, and mobility, privacy, and context awareness are essential qualities of the application. This proposal will study the feasibility of establishing an industry university collaborative research center focused on PPI that will enable an entirely new class of intelligent applications that is predictive instead of reactive.

The proposed PPI Center will enrich the educational resources and toolsets for adding, modernizing, tuning, and suggesting intelligence in software applications for the IoT. The Colorado Site will lead activities under two thrusts: (1) Edge and Cloud Computing. Is it possible to identify and develop a small set of fundamental system-level services at the middleware layer to integrate mobile nodes, IoT devices and edge servers? (2) Programming Languages and Verification. Can new techniques be created that enable software developers to effectively create rich PPI applications that, by construction, are secure, privacy-preserving, and reliable?

With their rich array of sensors, camera, and GPS all integrated in a convenient form, IoT devices offer exciting new applications and services, never before possible on consumer devices. But these can be harnessed only if intelligence becomes a commodity. PPI will enable novel applications that will help the U.S. maintain and expand its leadership in computing. The proposed Center is committed to broadening participation in computing through, for example, summer camps focusing on programming for novices. To improve the retention of underrepresented populations, the proposed Center will work with technology associations to showcase PPI applications that help humanity.

The proposed Center on Pervasive Personalized Intelligence will be composed of Oregon State University, the University of Colorado Boulder, and industry partners. The proposed PPI Center will maintain a catalog of members, projects, meeting materials, program information, publications, data, code, and results at ppicenter.org. The website will be made available indefinitely or until the Center transitions to the next phase.